China Earthquake Protocol Coordination

9615548 Mooney The NSF, the USGS, and the State Seismological Bureau (SSB) of the People's Republic of China (PRC) have conducted a joint program of earthquake studies since 1980. This cooperative activity takes place under an official protocol between the three parties (see attached copy of Protocol and extensions). The original protocol lasted for 5 years and it has been extended in five year increments in 1985, 1990 and 1995. Under the terms of the protocol, representatives of the parties meet once a year to review progress and set the agenda for the coming year. NSF and USGS have agreed to split the cost of these coordinators meetings whenever they occur in the U.S. (every other year). The past two meetings have been paid for by the USGS, since during this time period they have had most of the "action" under the protocol and since the Chinese delegation visited USGS facilities during those meetings. This interagency transfer represents NSF's share of the expenses for the past two meetings. ***